Environmental Engineering Using Geosynthetics

Engineering - Civil (54)
This project develops materials and pedagogy for a course on Environmental Engineering Using Geosynthetics--Landfills, the first in a series of planned courses. The materials are being used by civil and environmental engineering professors who teach courses in environmental engineering. Geosynthetics are flat, man-made materials that are used to perform engineering tasks. Geosynthetics form the liners, drains, reinforcement and filters used in landfills. Teaching materials are being constructed in a modular fashion that allow them to be incorporated into existing courses or assembled into a stand-alone course or courses. Student learning and teaching effectiveness are being evaluated by a professional evaluator.